RIA: Intermediate Languages Based on Graph Rewriting

This research pursues the development of a formal semantics for real implementations of functional languages, modeling sharing and cycles, and for parallel functional languages with state. Traditionally both the operational semantics and the compilation process of functional languages are given by translating them to either the lambda-calculus, combinatory logic or abstract reduction systems. However, these computational models do not capture sharing and direct recursion, and thus are inadequate for reasoning about compiler issues and implementations. This research develops a sound theory for cyclic structures involving lambda abstraction. The need for new mathematical foundations arises when state is introduced in functional languages. Previous theories apply only to languages with sequential semantics. This research seeks to provide a framework for reasoning about state in a parallel setting by extending the above graph calculus.